Algebraic algorithms for Cell Complexes: Incubation Activity

DMS-0138323
Reinhard C. Laubenbacher

This award supports research concerned with the algorithmic
representation of cell complexes, a special type of
topological space. These complexes arise as topological
models of data and processes in science and engineering.
Specific applications of interest are to biological, social,
and communications networks, as well as to problems in
statistics. Topological invariants of the complexes provide
measures of certain characteristics of the processes
producing the data. The use of cell complexes as data
models represents a new application of these structures
to science and engineering network problems.

The methods employed include tools from computational
algebra, combinatorics, and combinatorial topology, thereby
making a contribution to the applicability of new mathematical
areas to some pressing and challenging applied problems.
Research results will be disseminated directly to the end
user outside the mathematical community. The project impacts
a number of graduate students, including students from
underrepresented groups.